Theoretical Studies in Quantum Dynamics

Horia Metiu is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research in quantum dynamics. Three areas of research are being studied: 1) wave packet interferometry is being extended to nonlinear spectroscopy as a sensitive method for studying highly excited states; 2) a technique is being developed for calculating photon absorption and Raman scattering cross sections for systems with few quantum degrees embedded in a bath of classical ones, e.g. an electron solvated in a zeolite; and 3) a time dependent theory is being developed for treating exciton formation and tunneling in confined semiconductor structures, e.g. quantum wells, wires, dots and clusters. There are many interesting biochemical, chemical and solid state systems in which an electron interacts with a complex environment. The spectroscopy of the electron connects this interaction to observable quantities and gives us a chance to understand the underlying dynamical mechanisms. Furthermore the properties of electrons and holes in confined semiconductor structures are being extensively studied in the hope of using them in opto-electronic and tunneling devices. Metiu will employ the techniques of time dependent quantum mechanics to study the behavior of electrons, holes and excitons in these systems. This work will help to provide useful intuitive models for the behavior of these complex systems.